Acquisition of a High Performance Liquid Chromatography System

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Arkansas State University will acquire a high performance liquid chromatograph. This equipment will enhance research in a number of areas including a) characterization of bio-organic compounds in oxalate rock coatings; b) rare earth element geochemistry using capillary electrophoresis for environmental risk assessment studies; c) development of new post-column chromatographic methods for measuring chemical species in drinking and natural waters; and d) determination of the effects of phystoestrogens on mammalian reproduction.

High performance liquid chromatography (HPLC) is an extremely powerful technique used for the separation and analysis of complex mixtures. The results from these studies will have an impact in a number of areas including geochemistry, environmental chemistry and biology.